New Directions in Computational Algebraic Geometry

This project develops new algorithms and new applications for
computational algebraic geometry. If focusses on the following
four specific topics: Computing amoebas, toric algebra of graphical
models, semi-definite programming and the real Nullstellensatz.
It involves tools from combinatorics, commutative algebra and
symbolic computation, specifically the method of Grobner bases.
The investigator also writes two books, one on Solving Systems of
Polynomial Equations, and the other on Combinatorial Commutative Algebra.

This project develops new algorithms and new applications for
computational algebra. The research in this project is partly
collaborative with researchers
in other fields, and it has applications to Statistics, Bioinformatics
and Computer Science. The use of algebraic methods plays an increasingly
important role for the analysis of the U.S. census data provided by the
National Institute for Statistical Sciences, and this project provides
foundational research for this application. In Computer Science, these
techniques are used in machine learning and artificial intelligence.